Acquisition of a Powder X-ray Diffractometer

9405051 Jenkins This award provides 60% of the funds required for the acquisition of a powder x-ray diffractometer to be installed and operated in the Department of Geological Sciences at the State University of New York in Binghamton. The University is committed to providing the remaining funds necessary for the acquisition. Use of the modern x-ray diffractometer will be mainly devoted to the research and teaching projects of the Principal Investigator and colleagues in the Department of Geological Sciences and also by members of the Department of Physics. Examples of current research projects include: (1) Studies of cation disorder in natural and synthetic amphiboles, (2) Mineralogy of low-grade metamorphic reactions in layered silicates, (3) petrologic studies of mineral distribution in layered igneous rocks, (4) Studies of the mineralogy of salt minerals from evaporite deposits, and (5) X-ray studies of stacking sequences in transition- metal/graphite intercalation compounds to determine the stacking sequence influence on their magnetic properties. ***